A Microcomputer Assisted Interactive Approach to Physics Education

In order to create an environment conducive to inquiry and exploration, a microcomputer assisted laboratory-classroom setting is being established. Learning physical concepts, principles, and methods of scientific inquiry is enhanced through integration of laboratory activities, discussions, and lectures in an atmosphere of guided, interactive inquiry. This innovative approach is greatly facilitated with the assistance of microcomputer interfaced instrumentation, which allows rapid collection, display, and analysis of data. Spreadsheet and graphics applications are learned and used frequently. As methods and tools of investigation become more familiar, student initiated inquiry and student designed experiments should arise naturally. Computer simulations and tutorials are used where appropriate. This microcomputer-based, workshop- style course will impact introductory physics courses at three levels, affecting students ranging in backgrounds from science and engineering to arts and humanities. Increased understanding and appreciation of the process of scientific investigation, improved attitudes towards learning physics, and greater interest in pursuing careers in science, engineering, and science education should result from this project.